ITR: Synthesis and Control of Infinite-state Reactive Systems

The objective of the proposed work is to develop a unified framework
for synthesis and control of infinite-state reactive systems based on
temporal specifications. With synthesis, the full program is
generated directly from its specification. With control, part of the
system is given and the task is to generate the modules interacting
with the given components such that the overall system satisfies its
specification. The framework will include a computational model to
represent the notions of infinite games, control, realizability, and
synthesis of reactive systems, a specification language that can
assign goals (winning conditions) to sets of system components, and
deductive-algorithmic methods to solve the synthesis and control
problems in their various forms for the infinite-state case.

The starting point for this framework will be a theoretical foundation
built on the models and methods developed for algorithmic synthesis
and control of finite-state reactive systems. These methods will be
combined with methods developed for deductive verification and
abstract interpretation of reactive systems, and with deductive
synthesis techniques for functional programs to allow the synthesis
and control of infinite-state systems. Preliminary investigations into
this approach, described in this proposal and also accepted for
publication, are promising.